Accquisition of A Gamma Detector for Studies Tracing Fine Sediment Transport

9510240 Whiting This grant provides partial support for the acquisition gamma detector for use in research to trace fine sediment moving through watersheds. How fine sediment moves from the landscape to the channel and to downstream points is both a fundamental scientific question whose answer is necessary for modeling landscape evolution and a practical question whose answer is critical in land management decision-making. The PI's will employ the detector to measure fallout radionuclides including, 7Be, l37Cs and 2l0Pb in order to follow fine sediment as it moves through watersheds. These radionuclides are washed from the atmosphere by precipitation and quickly adsorbed onto sediment, which permits their use as tracers of sediment. The relative activities of these radionuclides with different half-lives should allow the distinction between "new" sediment washed off the landscape during storm events and "old" sediment which has been stored in the stream bed and bank and has been resuspended by the increased flow associated with storm runoff. The activity of radionuclides in sediment relative to these two end-member components can be used to establish the relative delivery of landscape sediment to downstream points in the drainage network, to estimate mean travel distances and transit rates of fine sediment, and identify sources of sediment in the watershed. This innovative research has great potential to improve our understanding of fine sediment and pollutant transport in watersheds and thus is directly applicable to a variety of environmental problems. ***